MRI: Gender as a Factor in African-American Adolescents' School Performance

This project is part of the Minority Research Initiation Planning Grant program. A relatively junior minority scholar is supported to advance her capacity to conduct research in the area of gender as a factor in African-American adolescent's school performance. The PI will consult with several leading scholars in this area of research at the University of California, Berkeley, and at Princeton University, and will code and analyze data from an existing survey of adolescents at a high school in Washington DC. The questions to be asked will help assess the relative importance of gender, race and class as factors explaining the differentials in school performance. This project is important because it supports a promising minority scholar in her field of study. Through relatively small investments in their future careers, the Foundation hopes to stimulate the research productivity of minority scholars.